Rare Gases and other Simple Systems at High Pressures

We propose to continue our studies of the changes induced in the electronic structure (band gap and near edge) of simple systems by application of high pressure, using the methods of nonlinear optics, and thereby test current theory.